Development of a New In-Situ Near Infrared Raman Probe Laser Ablation System for Chemistry Research

With support from the Major Research Instrumentation (MRI) Program, Prof. Emanuel Waddell of Morgan State University will develop an in-situ near infrared Raman probe laser ablation system for chemistry research. This multi-wavelength pulsed UV laser ablation system with a controllable xy-stage will allow for the fabrication of microfluidic systems and analytical sensors in polymer substrates. It will also be capable of performing in-situ investigations of the polymer surface via near infrared Raman spectroscopy. The instrument will result in a clearer understanding of the surface chemistry that results as a function of laser ablation, and will provide insight into the effects of local atmosphere and ablation wavelength on the resulting moieties on the polymer surface.

The in-situ near infrared Raman proble laser ablation system is a unique instrument as it will allow the in-situ, real-time investigation of the polymer surface during the ablation process. The near-infrared Raman analysis will provide a nondestructive method to probe chemical reactions on the polymer surface. Development of this instrument will significantly enhance research in the polymer sciences.